Problems in Gravitation

Richard Matzner will carry out research in gravitational physics and
relativity, utilizing the tools of mathematical analysis, comparison to
observation, and computational modeling. He will apply these techniques
to understanding the possible configurations of massive objects as
described in general relativity, concentrating on black holes. He will
study the way in which these objects can be described in computational
terms, and the dynamics of these objects in interaction.

The main part of this work will concentrate on developing evolutions of
black hole interactions. These are the strongest possible gravitational
sources, and will produce strong gravitational wave events. They are a
testbed in which our understanding of strong gravitational fields is
exercised, and in which new theoretical concepts are developed. They are
a difficult computational problem (large operation counts, large
numbers of field variables), and require special techniques, very
careful numerical handling, and very large computational resources.
Thus they are an excellent domain to develop new computational
infrastructure. And they may provide detailed predictions of the
waveforms detected in the current and in future generations of
gravitational wave detectors.